MULTI-USER IMAGING FACILITY FOR INTEGRATIVE NEUROSCIENCE

This award provides funds to aid in the purchase of optical microscopy equipment. The equipment will be located in a central facility where it will be available to a group of neuroscientists in the Keck Center for Integrative Neuroscience. The scientists are all interested in various aspects of local circuit analysis of the mammalian central nervous system (CNS). The goal of their studies is an improved understanding of how small groups of neurons generate behavior. The instruments requested will be used for combined anatomical and physiological studies of brain function that include the use of double or triple labeling techniques. The development of new instrumentation for optical microscopy and of new methods that permit specific labeling of certain cells or certain cell constituents has been key to progress in our understanding of many aspects of cellular and developmental biology. Neuroscience has benefited greatly from these developments, since they permit the rapid and reliable identification of particular neurons or groups of neurons in the brain or at other sites that typically contain many nerve cells or similar morphology.